Development of an Advanced Laboratory Course in Biochemical Techniques and Instrumentation

This project will result in the development of an undergraduate biochemistry laboratory course that emphasizes modern techniques and instrumentation. The laboratory course will complement the ongoing biochemistry lecture course, and will enhance substantially the biochemistry education of students at the University of North Carolina at Wilmington. This project will provide a suite of instruments (including an automatic recording titration system, a liquid chromatography system, a densitometer, a preparative ultracentrifuge, and an electrophoresis unit) to be used primarily in the new biochemistry laboratory course and also in physical and analytical chemistry courses. Students will gain experience with buffer and other reagent preparation, protein assays, protein purification, protein and DNA electrophoresis, enzyme kinetics, tryptic peptide digestion, membrane vesicle construction, DNA isolation, and radioisotope labelling. The experimental work will illustrate important concepts in biochemistry, and will help students attain proficiency in widely used biochemical techniques.